Voltage Instabilities in Large-Scale Power Systems

In this proposal the notion of "voltage collapse" associated with large-scale electric power system dynamics is explored. While there has been significant research done during the past few years on the static voltage instability problem, the dynamic problem is only now beginning to emerge in analysis. The premise here is that while static indicators are important it is only through an understanding of the dynamics that effective control measures against collapse can be derived. This proposal contains three main ideas. First, any understanding of voltage dynamics requires a relevant load model. An accurate first principle dynamic load model is difficult if not impossible to achieve. A neural network based model trained on dynamic load data as a substitute for the impossible task of writing the load differential equations is proposed. The second idea is to modify the minimum singular value static performance index to include dynamic phenomena. The third idea is to extend a center manifold dynamic voltage collapse model to general slowly time-varying multi-parameter systems.